Workshop/Collaborative Research: 2010 NSF Proposal Writing Workshop; September 1-2, 2010; University of Nebraska-Lincoln

This collaborative award provides support for the conduct of a NSF proposal writing workshop to be held September 1-2, 2010, at the University of Nebraska-Lincoln, Lincoln, Nebraska. Provision is made for 150 attendees who will be selected from among the applicants giving priority to early career faculty in EPSCoR states, especially Arkansas, Kansas, Nebraska, Oklahoma, South Dakota and Wyoming, whose research will likely receive support from the Division of Civil, Mechanical and Manufacturing Innovation, and to members of underrepresented groups. The workshop will include a lecture on the basics of proposal writing, experiences of recent NSF awardees, and mock panel reviews of actual recent NSF proposals and of the attendees' own proposal summaries.

Previous similar workshops have attracted typically twice as many applicants as can be accommodated at the workshop. Previous attendees have enjoyed significantly higher proposal success rates with their proposals. Thus, it is expected that this workshop will provide information that will enable the attendees to write more competitive proposals and subsequently improve the quality of their research.